U.S. National Wind Engineering Conference; University of California, Los Angeles, June 27-30, 1993

The Seventh United States National Conference on Wind Engineering will be held on the campus of the University of California, Los Angeles, on June 27-30, 1993. The objectives of the conference are: to stimulate the exchange of knowledge and information about activities in disciplinary and interdisciplinary research areas; to transfer this information to practitioners; to seek their input on what are the results of research they need for rapid utilization; to determine gaps in knowledge especially for complementary research areas; and in discussing new directions for research. The presentations will consist of invited papers and papers selected from abstract submission. Proceedings will be published from the papers received.